Geometric aspects of interior-point algorithms of optimization

Proposal: DMS 0102628
Principal Investigator: Leonid FayBusovich, Department of Mathematics,
University of Notre Dame

Abstract.

PI analyzes geometric and algebraic structures arising in connection
with optimization problems. The major goal is to further expand the
domain of applications of interior-point algorithms. A method based on
the theory of random matrices is proposed to calculate characteristic
functions of cones generated by Chebyshev systems and thus
self-concordant barriers for these cones. This drastically expands the
domain of applicability of interior-point algorithms. In particular,
possible applications to spline approximations are outlined. A general
approach to the construction of self-concordant barriers for a broad
class of infinite-dimensional domains is proposed. The technique of
JB-algebras is suggested to carry over the recent impressive
applications of the theory of Euclidean Jordan algebras to symmetric
programming to the infinite-dimensional situation. Possible control
applications are outlined.

The theory of interior-point algorithms provides a general framework
for the analysis of a broad class of extremely efficient optimization
algorithms. These algorithms are used to solve problems aiming at
finding the best possible solutions under various constraints (e.g.
time constraints , available resources e.t.c ). The realization of
the project will enable us to drastically expand a class of problems
that can be solved with the help of powerful modern computers.